QSB: Biological Applications of Chemical Reaction Network Theory

The long range goal of this project is to develop an understanding of the connections between the structure of complex enzyme-promoted metabolic networks and their structural capacity to admit more than one steady state. More generally, the Principal Investigator (PI) is interested in connecting his long experience with intricate reaction networks to important problems in both cell biology and biotechnology.